Investigation of the Nuclear and Particle Properties of Light Nuclei (Physics)

The program of research at the George Washington University to be performed by the Experimental Particle and Nuclear Physics Group consists of : i) coincidence measurements which study the few-body interactions of light nuclei; ii) completion of the analysis of our pion-nucleon data taken over the last decade; iii) inclusive elastic scattering of pions from three-nucleon nuclei to study model dependent theories, Coulomb effects and charge symmetry; and iv) a program of state-of-the-art detector design, development, testing and construction. The particular goal in part iv is to contribute in a significant way to the construction of the Neutral Meson Spectrometer to be soon proposed by a collaboration that includes GWU. A more long term goal is to develop the detectors that will be used in the Tagged Photon System to be used in Area B at CEBAF and more generally to contribute to the construction of the LAS at CEBAF.